Scholars Award: Measure for Measure: Social Ontologies of Classification

This project funded by the Science, Technology & Society Program examines how different forms of social classification -- from high brow to low brow, from scientific to popular, from state-directed to society-driven -- relate to one another within a particular society, and explains their common origins in the institutional and political make-up that supports them. The PI investigates the existence of national classificatory styles through a detailed analysis of the emergence and development of three debates over classification in America and France: the ranking of wines, the digitization of books and the economic valuation of nature. The unfolding and settlement of these debates in each country are followed, and narratives are drawn together by showing the common institutional and cultural logics at work across them, in spite of their large differences in origin, purpose and function. By systematically embedding classificatory activities in particular discursive repertoires and institutional environments, this project makes an important contribution to our understanding of how people come to construct the world in a particular way, as well as to our appreciation of the political and economic force of these representations.

At a material level, each of the case studies undertaken for this project is the occasion for the PI to work closely with one research assistant. The project thus contributes to the training of three graduate students, draws them together as a team working on parallel issues and stimulates their interest in the intersection between technology, knowledge and politics. Second, at the analytical level, the project bridges an important disciplinary gap by connecting the philosophical and historical literature on measurement and value in science studies with the abundant literature in sociology and political science that deals with cross-national variations in institutional systems and cultural representations, thereby contributing to enrich both literatures. Finally, at a more metaphysical level, this project fosters a better understanding of the institutional, economic, and cultural basis of knowledge that could be useful in many applied domains -- including cross-cultural psychology, consulting, economic activity and policy. It draws attention to the importance of technologies of classification and measure in carrying out certain visions of the social order and in explaining why some of these visions become focal points for political contention and economic conflict, as is the case in all three domains singled out for empirical examination.